Research Directions Workshop on Large Scale Knowledge Base and Reasoning Systems, February 25-27, 1985

Large-Scale Knowledge Base and Reasoning Systems are critical elements in several research programs including those of NSF and DARPA. Such systems will require intelligent processing over very large amounts of data organized under various knowledge representation schemes. Current Artificial Intelligence (AI) technology provides 'intelligent' processing over relatively small amounts of data stored under small but rich knowledge representation schemes; Database (DB) technology supports efficient storage and retrieval of large data volumes stored under large but simpler database schemes; evolving hardware technologies impact both areas. These technologies must be integrated to meet the requirements of Large Scale Knowledge Base Systems. Funds are provided to organize and run a three-day, limited attendance workshop. The goal of the workshop is to identify key technical requirements, problems, approaches, and solutions to Large Scale Knowledge Base and Reasoning Systems. The second goal is to increase the technology transfer between the AI and DB communities needed to solve the identified open problems.